Formation of Oceanic Core Complexes: Numerical Analysis of Tectonic and Magmatic Modes of Extensional Stress Release

9730865 Blackman The mechanisms by which lower crustal and upper mantle rocks are unroofed, uplifted and exposed on the seafloor will be investigated via a series of numerical experiments. Previous models of the formation of metamorphic core complexes in extended continental regions will provide a starting point for this modeling of oceanic core complexes. The intent is to develop numerical predictions that can help guide future mapping efforts.